Workshop on "An Assessment of the Likelihood for Weediness to Arise from the Release of Higher Plants Altered through Recombinant DNA Genetics," Spokane, WA; October 11-14, 1987

A workshop will be convened near Washington State University, October 12-14, 1987 to assess the likelihood that new weedy forms of higher plants could arise through techniques in recombinant DNA genetics. Each participant represents one or more relevant disciplines in plant biology. The participating ecologists, will characterize the life history and worldwide epidemiology of weeds that cause great damage, especially plants that readily escape cultivation. The plant geneticists and systematists will outline the precedents for the transfer of genetic information among common cultivated plants and their weedy relatives. Using common arable crop and forage species and their wild relatives, both these groups of specialists will identify a tentative list of hypothetical phenotypes that could be potentially damaging to the environment. To the extent proprietary interests permit, the invited molecular biologists will outline traits that could be imparted to these same common cultivated plants by recombinant DNA genetics. Working together, the participants will have as one objective an assessment of the potential for these hypothetical phenotypes to be produced directly (or indirectly through subsequent gene transfer in the wild) by recombinant DNA genetic techniques in higher plants in the next ten years. The participants will also identify the information (e.g., experiments, compilations of existing data on failure rates in plant introduction and agronomic field trials) needed to strengthen their predictions. The outcome of the meeting will be published for a wide scientific readership.